NEON Workshop: National Ecological Observatory Network Workshop at Archbold Biological Station in Lake Placid, Florida, Winter 2000

The Archbold Biological Station has proposed to conduct a planning workshop to develop the interdisciplinary capability and conceptual breadth of NEON, the National Ecological Observatory Network. The workshop will be held from 10-12 January 2000. Workshop facilitator is Dr. Martyn Caldwell of Utah State University. The goals of the workshop are to:

develop some broad ecological concepts that can be addressed by NEON,

determine the types of infrastructure needed for observatories in NEON,

address management issues for NEON infrastructure,

discuss coordination of research within and among NEON sites, and

provide advice on the challenges of overcoming the sociological and institutional barriers associated with colaborative research that is multi-institution, large-scale, and broadly interdisciplinary.

Introductory sessions and reports by breakout groups will be broadcast on the world wide web. The workshop will result in a report submitted to NSF.